Mathematical Sciences: Renewal of Development of CalibrationCurve Methods and an Investigation of Their Properties

This research project produces new methods for high dimensional multivariate calibration curves. It will address methods that are robust with respect to interaction effects. In addition, it will advance calibration methods with errors in the calibration standards. Methods from chemistry and environmental chemistry will be the focus. Important policy and legal decisions often depend upon accurate measurements. These in turn depend upon good calibration of the instruments. For example, the knowledge of the extent or rate of the ozone depletion depends upon ground- based Dobson measurements which are suspect due to poor calibration. The problem of improving calibration methods is one of several to be considered in this research.